Research Experiences for Undergraduates: Undergraduate Internship Program in Biophysical Computing and Computational Dynamics

9527932 Truhlar, Donald G Thomas, David D University of Minnesota Research Experiences for Undergraduates: Undergraduate Internship Program in Biophysical Computing and Computational Dynamics This Research Experiences for Undergraduates project will support nine students per year in programs carried out during the summers, for three years. The program's objective is to promote and help support undergraduate involvement in ongoing and new research in biophysical computing and computational dynamics and new software development efforts for scientific computing and graphics support for such research, as well as to carry out interesting and useful research. Undergraduates will work with faculty on a wide variety of projects. The Supercomputer Institute, an interdisciplinary research program spanning all colleges of the University, provides a focal point for the project and arranges sessions at which the students working on various subprojects share their work, visit each others' labs, and learn about related work. ***